REU Site: Louisiana State University; Synchrotron-Radiation-Based Research for Advanced Undergraduate Science and Engineering Students

Louisiana State University (LSU) supports a Research Experiences for Undergraduates (REU) Site at its synchrotron radiation laboratory, the Center for Advanced Microstructures and Devices (CAMD). Ten students are recruited nationwide every year for a ten-week summer research experience, with a recruitment focus on students from the state of Louisiana and from surrounding states. Undergraduates from many disciplines, including physical, computer and biological sciences and engineering are targeted. Students participate in a variety of research projects within three major categories: basic and applied science research (x-ray spectroscopy of materials) and microfabrication (x-ray lithography).

The program at LSU provides non-LSU undergraduates a unique opportunity to participate in research in a modern, large facility. It also provides the opportunity for enhancing synchrotron-based undergraduate research at other colleges and universities by involving faculty from the students' home institution through a 'Home Mentor' program.